Integration of Optical Receivers and Arrays for Wavelength Division Multiplexing and Coherent Communication Systems

The present effort involves the research into the interface between optical transmission and electronic devices and circuits. This is one of the most challenging problems to be faced in future opto-electronic systems and is an area in which a significant University based activity is lacking. The research relating to this effort will impact future optical communications, local area network, and optical signal processing systems.